Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project will be used to support research on Coupled Oscillators and Neural Networks; Travelling Waves in Combustion Theory; On the Relation between Painleve Transcendents and Inverse Scattering; Nonlinear Boundary Value Problems in Ordinary Differential Equations; and On Systems of Differential Equations which Describe Phase Boundaries.